NSF Young Investigator

9458122 Arcese This work will address the ecological and evolutionary basis of individual variation in reproductive and aggressive behavior using two long-term observational and experimental studies of song sparrows (a North American passerine) and oribi (an African antelope). The goals of this work include (1) development of oribi and song sparrows as model species for research linking fundamental issues in empirical and theoretical ecology with applied problems in wildlife management and conservation; (2) the development and application of fecal steroid assays for the non-invasive monitoring of reproductive condition wild ungulates, and single-locus DNA fingerprinting for studies of the demographic impacts of inbreeding in small populations; and (3) to use this and related work in computer modelling to develop a new undergraduate course in Applied Behavioral Ecology. Expected benefits of the work include the development of a predictive framework for assessing the impacts of population genetic structure and demography on vertebrate behavior, and the improved application of molecular genetic and endocrinological techniques for non invasive field research.